Undergraduate Portable Fluids Laboratory

This funding supports development of multiple, portable fluids laboratory stations. These stations provide for measurement of point fluid velocities, flow rates, and flow energy. In addition, calibration of flow meters and complete energy balances casn be accomplished, including electrical energy generated via an air turbine. An existing turbofan system using a hot wire anemometer was modified by adding a computerized data acquisition system. This computerized system, including graphical displays, significantly improves the educational program by allowing wide ranging parametric analyses by students within the normal time alloted for fluids experiments. Experience gained is to be shared with the educational community via the Engineeiring Education literature. This award is being matched by an equal amount from the principal investigator's institution.